Eighth Conference of the Canadian Number Theory Association; June 20-25, 2004; Toronto, Canada

The Canadian Number Theory Association (CNTA) was founded in 1987 at
the International Number Theory Conference at Laval University. The
purpose of the CNTA is to enhance and promote learning and research in
Number Theory. To advance these goals the CNTA organizes major
international conferences, with the aim of exposing students and
researchers to the latest developments in number theory. The previous
meetings have been held in Ban(r) (1988), Vancouver (1989), Kingston
(1991), Halifax (1994), Ottawa (1996), Winnipeg (1999) and Montreal
(2002). These have been conferences of extremely high quality which
have received generous financial support and enjoyed wide participation
by the international number theory community.

At a number of the previous meetings a component of that support has
been provided by the National Science Foundation explicitly dedicated
to the coverage of expenses for participation by graduate students,
postdoctoral fellows, and early career mathematics faculty who are
resident in the United States. This award will support the
participation of young American academics at the CNTA Conference.